Postdoctoral Research Fellowship in Plant Biology

This award funds a postdoctoral research fellowship in plant biology for two years. The project entitled "Molecular genetic analysis of the chloroplast-encoded rpoA and rpoB genes of Chlamydomonas" is to be carried out in the laboratory of Dr. David Stern at Boyce Thompson Institute. Dr. Sturm has received her Ph.D. training working on RNA editing in the trypanosome mitochondria. In her postdoctoral training, she will focus on the regulation of gene expression in Chlamydomonas chloroplasts. The Postdoctoral Fellowships in Plant Biology are designed to increase the number of outstanding young investigators in plant biology.